PMSA: Accessing Accelerated Achievement

HRD-9353645 Potter, Paula/Reynolds, Harry and Greene, Edward Chattanooga Public Schools Chattanooga, TN "Accessing Accelerated Achievement" Accessing Accelerated Achievement in Science and Mathematics for Minority Students (AAA) is a five-year teacher development and student support program designed to increase the number of minority students who pursue upper-level secondary and college level studies in the areas of science, mathematics, engineering and technology., The project is a joint venture between the chattanooga Public Schools, Ventures in Education, the National Paideia Center, the Southeast Consortium for Minorities in Engineering (SECME), the University of Tennessee at Chattanooga, the Lawrence hall of Science's Project Equals, and others. AAA aims to increase student participation in the math and sciences by increasing the level of expectation for all students, while simultaneously redefining the teaching and learning equation in elementary, middle, and high school classrooms. Included in the redefinition of math and science are: interdisciplinary planning teams, the Socratic seminar, cooperative learning, Hawaii Algebra and hawaii Geometry, science/technology exhibitions, and the implementation of authentic student assessment processes. Strong emphasis has been placed on incorporating reading and writing to learn strategies in mathematics and science classrooms at all grade levels. Implementation of the many classroom innovations will be facilitated by the project's three full-time lead teachers. Beyond the reform of teaching and learning at the classroom level, a number of intervention programs have been selected to enhance minority student performance and attitudes as well as parental participation. These include student visits to regional university campuses, Family Math and Family Science, SAT/PSAT preparation courses, SECME programs, and science camps. Project monitoring and evaluation will be facilitated through the implementation of Hall and Hord's Concerns-Based Adoption Model and the use of numerous traditional and alternative modes of student and teacher assessment.